Dry Electrostatic Fly Ash Processing for Activated Carbon Recovery

The objective of this project is to determine the feasibility of separating companents of fly ash produced by combustion of coal into by useful materials by use of nevel electrostatic process. Unburned carbon in the fly ash reduces its ability to function adequately as an aggregate in production of concrete. The carbon entrained in the fly ash has the potential for serving as a low-cost treatment of water or wastewater. The research involves determination of the extent to which carbon can be removed from fly ahs, concentrated by additional processing, and its adsorptive properties which woul determine its usefullness in water and wastewater treatment. The proposal leading to this project was submitted in response to NSF 88-8, Program Solicitation for Small Business Innovation Research. Many potential uses of fly ash are possible if its properties can be properly controlled. This project offers a potential for utilizing fly ash, a waste product in plentiful supply, as a source of useful materials, reducing costs for disposal of the fly ash and avoiding the environmental problems now associated with its management.